Specimen Management System for California Herbaria (SMASCH)

9400665 Duncan SMASCH is a collaborative effort by the Association of California Herbaria (ACH) to develop and implement a distributed database that will store and manage information obtained from accessions of vascular plants collected in California. The database will enhance understanding of the state's vascular plant resources, both living and preserved, and will improve the efficiency of many herbarium operations, this renewal will allow UC/JEPS to: complete data entry for the UC/JEPS portion of the SMASCH database; maintain and modify data entry software, develop an image archive, and develop user access tools; extend the data model to collection management activities including exchange and production of labels and forms; further develop connections to literature-based checklists of taxa, multiple-entry keys, and other aspects of floristic information management.